Microcomputer Braille Translation

This project will provide research on a novel approach to microcomputer translation of print material into braille and braille to print. Knowledge and experience are derived from Raised Dot Computing's previous commercially successful software design and applications development for visually impaired computer applications. The merits of structured programming language translation and formatting will be evaluated with respect to various applications: 1. Construction of braille translation algorithms and tables applicable microcomputer systems and/or applications software. 2. Implementation of braille translation algorithms and methods for mathematics, computer code, textbook, and literary formats. The approach seeks to significantly improve the production and accessibility of information in braille for use by the visually impaired. Improved access to microcomputers for the visually will enhance their access to business, technical, and educational materials and information.